Phase I IUCRC at University of Massachusetts Lowell: Center for Science of Heterogeneous Additive Printing of 3D Materials (SHAP3D)

The IUCRC Science of Heterogeneous Additive Printing of 3D Materials (SHAP3D) will serve the diverse interests of industry, government, and academia to address fundamental research challenges to meet the commercial needs of industry for heterogeneous 3D printing of materials. The additive manufacturing (AM) is viewed as a research area for global competitive advantage by industries such as automotive, medical, aerospace, and consumer products. SHAP3D aims to accelerate expansion and competitiveness of the domestic AM industry and its customers by addressing two critical market needs: (1) the growth of AM into more complex topologies, heterogeneous, and multi-functional applications that command high margins commensurate with their increased performance, and (2) the expansion of AM into lower margin industries via order-of-magnitude improvements in throughput, material-per-performance cost reductions, and ease-of-use design rules that enable SMEs and large companies to rapidly adopt advanced techniques. The Center will disseminate its design, material and process research to industrial members and practitioners, and the broader academic community. SHAP3D will provide a technically trained workforce, with industrial perspective, through the close collaboration between industry and academia. UML site-specific educational programs associated with this I/UCRC include K-12 modular block, freshman Co-op Scholars and online education programs.

The SHAP3D Center research will be driven by the performance requirements of industry, built from a technical foundation of the fundamental structure-processing-property relationships associated with the voxel-level control and integration of diverse processes and materials. The enormous number of material combinations possible in these multi-material systems multiplied by the parameter space represented within processes with voxel-level state-variable control requires fundamental understanding of the material (constituent matrices, fillers/additives, interfaces) properties, processing protocols, and design rules to reliably predict the properties of products and parts. Despite the diverse materials and process combinations, they are unified by many underlying physical principles related to melting, processing, and solidification, and interfacial physics for heterogeneous additive printing of materials.. The Center will support members' choice of AM methods and envisions research that encompasses numerous additive printing methods, such as fused filament fabrication (FFF), stereolithography/digital light projection (SLA/DLP), and other additive approaches. The University of Massachusetts, Lowell (UML) site will add research strength in modeling, material characterization, processing, rheology, multi-material printing, and new materials for additive manufacturing. The Center and UML site will add significant value for industry by addressing their vision to additively manufacture dissimilar materials into heterogeneous, valued-added products imbued with previously unattained biological, chemical, electrical, and mechanical functionality.